Temperature-Dependent Cross Section Measurements: Absorption and Fluorescence Produced Through Photoexcitation

9322384 Wu This award is for measuring (1) high-resolution high-, room-, and low-temperature photoabsorption cross sections of molecular nitrogen and (2) the temperature-dependent fluorescence cross sections for producing the N I emissions through photodissociative excitation of molecular nitrogen and that for producing the N II 1085 and 916 angstrom emissions through dissociative photoionization excitation of molecular nitrogen, from their respective thresholds to 200 angstroms. Such cross sections are required for accurate quantitative analysis and evaluation of the nitrogen dayglow models of the Earth, Titan and Triton. ***